Biomimetic Synthesis to Elucidate Biosynthetic Pathways and Establish New Methodology

Dr. Dirk Trauner of the University of Pennsylvania will investigate how nature builds complex molecules and apply those insights to create new chemical reactions for the efficient synthesis of biologically active compounds. Many natural products are assembled through intricate reaction cascades that remain poorly understood. By studying and recreating these processes in the laboratory, this project will provide new tools for making valuable molecules more efficiently and sustainably. The research will advance organic chemistry and biotechnology by deepening our understanding of how living organisms construct complex molecular architectures and by enabling new approaches for the synthesis and manufacture of biologically important compounds. These advances may ultimately facilitate the discovery and development of new medicines, agricultural products, and other technologies that improve human health and well-being. The project will also train undergraduate students, graduate students, and postdoctoral researchers in modern chemical synthesis, promote interdisciplinary education at the interface of chemistry and biology, and strengthen collaborations with academic and industrial partners working on molecular innovation.

The project focuses on biosynthetically inspired cationic cascade reactions involving unusual carbocations and interrupted Nazarov cyclizations. These studies will test mechanistic hypotheses regarding the biosynthesis of structurally complex polyketides, including the varilactones, somalactams, and related natural products. Experimental investigations will establish new strategies for controlling highly reactive cationic intermediates and for exploiting these intermediates in efficient synthetic routes to complex molecular targets. Mechanistic studies will provide fundamental insights into carbocation structure and reactivity, while the resulting synthetic methodologies will be applicable beyond natural product synthesis to medicinal chemistry, chemical biology, and materials science. Taken together, these efforts will expand the toolbox of modern synthetic chemistry and provide broadly useful approaches for constructing structurally sophisticated and useful organic molecules.